SBIR Phase II: High Performance Cooling Devices through Wafer Scale Manufacturing

This Small Business Innovation Research Phase II project will create high performance coolers using waferscale semiconductor manufacturing by building on the material processing foundations demonstrated in Phase I. Phase I work has demonstrated that high quality materials can be formed in a method that can be extended to high volume production. This Phase II effort will implement this manufacturing technique at a wafer scale, integrating Phase I materials into initial devices for customer evaluation and sale.

The broader impacts of widespread deployment of efficient thermoelectric coolers include reduction in energy consumption and more efficient use of available energy by widespread use of high performance thermoelectric power generation from waste heat; and broad improvements in general quality of life by high performance compact coolers that allow continued advancement of products in the microelectronics and optoelectronics industries.